Combinatorics of Convex Polytopes/Teaching with Technology

This CAREER award supports the research and professional development of Professor Clara Chan. Chan will investigate the polytope algebra and its connections to the algebra of piecewise polynomial functions and cohomology of toric varieties. She will also continue her work on cubical polytopes. The main focus of the educational plan is to bring more advanced technology into undergraduate mathematics courses at Virginia Tech, especially in the area of Discrete Mathematics. The research component of this project is in the general area of Combinatorics. Combinatorics attempts to find efficient methods to study how discrete collections of objects can be arranged. The behavior of discrete systems is extremely important to modern communications. For example, the design of large networks, such as those occurring in telephone systems, and the design of algorithms in computer science deal with discrete sets of objects, and this makes use of combinatorial research.